Some impact of topology on variational problems

PI: S.-Y. Alice Chang and Fengbo Hang, Princeton University
DMS-0209504

Abstract:

Some impact of topology on variational problems

In this project, we will focus on variational problems involving vector-
valued maps. In particular, we will study upper and lower bounds of
the energy functional for maps with suitable topological information,
the weak sequential approximation of Sobolev maps by smooth maps and
the structure of singular sets for solutions of some variational
problems. Various tools from geometric measure theory and differential
and algebraic topology are used in handling these issues. On the other
hand, our approach to the problems sheds light on new relations among
these topics.

Variational problems involving vector-valued maps appear naturally in
analysis, geometry and physics. Besides their mathematical interests and
importance, they are crucial to various models in mathematical physics.
Typical examples include models for superconductivity, magnetic material
and liquid crystals. The research in this area will lead to better
understanding of certain type of physics phenomenon as well as new
impetus in mathematics in this direction.